RAPID: Low Cost Personal Remote Sensing for Cognitive Disaster Assessment with Enhanced Human-Machine Interface

The project studies the use of advanced Human-Machine Interface kits such as helmet displays and Virtual Reality goggles with low-cost autonomous Umanned Aerial Vehicles (UAV) and assesses their impact on the ground operator's cognitive load, and explores the addition of the capability to enable the UAV with a certain amount of cognitive ability so that it can suggest places in the scene to make observations.

This project impacts search and rescue, disaster mitigation, mapping and assessment, and broadens the perspectives of faculty and students through an international collaborative effort.